Natural-Fiber Reinforced Polymer Composite I/UCRC

The Washington State University will hold a planning grant meeting to become a member of the multi-university Industry/University Cooperative Research Center for Reinforcing Buildings and Bridges with Composites. The research team at Washington State University has considerable experience in managing large research teams. This will help to insure technical advances and industrial successes in the research program of this proposed center. The unique combination of materials development, codes and standards experience, and structural expertise will benefit the interdisciplinary needs of the industry.